Travel: NSF Student Travel Grant For 2026 ACM AI Leadership Summit

The ACM AI 2026 Leadership Summit focuses on how artificial intelligence (AI) can responsibly advance scientific discovery, innovation, and human expression. A central component of the Summit is the Ph.D. student mentorship program, which is designed to provide professional development opportunities for early-career researchers pursuing doctoral training in AI and AI-enabling fields. Through structured one-on-one and small-group interactions with senior AI researchers, industry leaders, and policymakers, participating students will gain exposure to cutting-edge research directions, mentorship on research and career trajectories, and insight into responsible AI development. Supporting student participation in this program directly strengthens the future research workforce in AI and related domains.

Providing travel support for the Ph.D. student mentorship program at the ACM AI Leadership Summit will help cultivate a cohort of junior scientists committed to societally beneficial areas of computing and artificial intelligence. Participating Ph.D. students will receive individualized and small-group mentorship and engage in structured activities to develop skills essential to successful research careers, including interdisciplinary collaboration, ethical reasoning, and leadership. As AI increasingly spans interdisciplinary, multidisciplinary, and transdisciplinary domains, doctoral students from a broad range of computing and application areas will benefit from these mentorship opportunities. By lowering financial barriers to participation, the proposed travel grants will contribute to a more inclusive research community and support career preparation in areas that advance safer, more trustworthy, and more responsibly designed AI systems with broad societal benefit.